Student Travel Support for the 24th International Conference on Parallel Architectures and Compilation Techniques (PACT); San Francisco, CA; October 18 - 21, 2015

The 24th international conference on parallel architectures and compilation techniques (PACT) will be held in San Francisco, CA in October 2015. PACT is a multi-disciplinary conference that brings together researchers from hardware and software areas to present ground-breaking research in parallel systems ranging across instruction-level parallelism, thread-level parallelism, multiprocessor parallelism and large scale systems.
This award is to make travel scholarships available to students and universities not typically represented at PACT in order to improve the conference’s impact and outreach.